Equipment for a Labortory Course in Biological Chemistry

The project involves development of a Biochemistry course within the Chemistry Department. The course will introduce will ultimately be composed of five modules which will include: l) purification of -galactosidase from Ecoli; 2) cloning of the gene for this protein; 3) preparation of site directed mutants to investigate the mechanism of this protein; 4) use of steady state and presteady state kinetics as probes of the mechanism of this enzyme. The fifth module will be developed by each student with the assistance and input from the instructor.